High Performance Network Connection in Support of Meritorious Research at Tufts University

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 98-102. It provides partial support for two years for an OC-3 connection. Applications involve the development of a fiber-optic sensor system called the "Artificial Nose Project", a high energy physics application, Project MONARC; and locating anomalies in large data sets and verification with simulation models. Other projects include a humanities digital library, the Perseus Project follow-on, microscale reflectance spectrometry of biological thin-film structures and multisensor electrochemical analysis on Mars. Collaborating institutions include: CERN, California Institute of Technology, Columbia University, West Virginia University, University of Arizona, University of Kentucky, Duke University; UC - Irvine, Northwestern University, Penn State University, Johns Hopkins University, NASA, IBM Watson Research Center in New York, Stanford University, and SUNY - Albany.